URM Collaboration: Biology of an Urbanized Estuary

This URM collaborative program at Lincoln University, a Historically Black University located in southeastern Pennsylvania, will provide research and mentoring experiences in environmental biology for talented African-American undergraduates with the ultimate goal of developing their interests in pursuing a postgraduate education in biology and environmental science. The two year program for each student is designed to utilize the appeal of summer field work in marine biology at the collaborating institution- College of Marine and Earth Studies of the University of Delaware (on Delaware Bay and the Atlantic Ocean) to engage the students' interests in biological research. Through this program, the participants will develop an understanding of the important societal contributions that can be made by environmental scientists to better manage ecosystems that are heavily impacted by human activities. The students in this program will receive intensive training in scientific research that will include: (1) a research methods course; (2) an extensive research experience; (3) a seminar course; (4) a journal club; (5) the opportunity to present and publish research results and (6) GRE preparation. The students will be chosen from among the second year undergraduate biology and environmental science majors at Lincoln University based on their career interests, academic achievements, and recommendations from faculty at Lincoln. Students who eventually complete graduate degrees and are employed in industry, government or academia will serve as role models to further stimulate interest in these careers among African-American undergraduate students. More information is available at: http://icewater.cms.udel.edu/urm/.